Integration of Liberal and Professional Studies in Engineering

This project changes the educational experience for engineering students to help the graduate develop the ability to integrate their knowledge with that of other professionals in order to synthesize appropriate and innovative solutions to multidisciplinary problems which require an understanding of the social, cultural and economic questions involved. This is accomplished by three distinctive student experiences: 1) An experience during the freshman year to show engineering and technology development as integral activities of a modern society; 2) a continuing study of issues in contemporary society emphasizing the connected nature of human activities and knowledge; 3) a capstone design experience involving teams of students and faculty developing proposed solutions to real life problems and situations. The grantee provides funds for this project that are more than twice the NSF award.